Biodegradation of Organic Compounds in Wastewater by Fixed Films on Rotating Surfaces

This study will address the process by which organic substances of pollutional significance are removed from wastewater using biologically active films that form on solid surfaces that rotate partially submerged in the wastewater. The particular compounds that will be studied include several chlorinated phenols, phthalates and 2-nitrophenol.